Paleobiology of the First Whales: Radiation of Pakicetid Cetaceans in Eocene Pakistan

9902830
Thewissen
The origin of cetaceans was marked by a number of dramatic changes in a whole array of organ systems, and this process is one of the best documented examples of major morphological change in the mammalian fossil record. This grant studies evolutionary changes in the oldest, most basal cetaceans. These whales, pakicetids, and are found only in freshwater deposits of northwestern India and Pakistan. This project will investigate the paleobiology of pakicetids by testing a suite of hypotheses relating to organ system change and its context. Data will be gathered from paleontological, geochemical, and paleomagnetic samples collected in Eocene deposits in northern Pakistan and these data will address questions concerning the phylogeny, locomotion, hearing, habitat, and trophic level of early cetaceans.